Mathematical Sciences: Problems in Hierarchical Model Determination

Gelfand Recent computational advances have made it feasible to fit hierarchical models in a wide range of serious applications. With this capacity various issues in model determination arise. This research studies the selection of a best model within a collection of such models. It concerns itself with the trade-off between goodness of fit and parsimony and the inappropriateness or shortcomings of customary criteria. The research also addresses the matter of model adequacy. With hierarchical models, model failures can occur at each stage. Approaches for identifying the existence of such failures and their nature are examined by the investigator. Finally, for hierarchical models hyperprior specification is often vague. This work considers conditions under which the resultant posterior is a proper distribution. The modern intellectual contribution of statistics is modeling and inference. In working with scientists from other fields, the statistician helps to formulate appropriate models for the scientists' problems and data as well as to indicate how inference can be developed which provides answers to the questions which motivated the scientists' investigations. With the wide availability of high speed computing, increasingly sophisticated models are being considered permitting the research effort to focus on the determination of the most appropriate model for the application rather than having to settle for an obviously inadequate one. Nonetheless, models must offer some simplification or else they are no easier to understand than the complex phenomenon they are modeling. This research addresses several important issues in the process of determining a satisfying model.